Elementary Particle Physics

This is a grant to support a professor and four graduate students in four separate activities. The primary one involves the SMC experiment at CERN in Switzerland in which the spin properties of the neutron and proton are studied using a beam of polarized muons. In another experiment, the Large Volume Detector (LVD) is being assembled in a large underground laboratory in Italy (Grand Sasso). This experiment is intended to detect neutrinos from space, and to search for effects due to changes (oscillations) in their identities. The other two activities involve technological developments in high temperature superconducting magnet design and in the production of devices capable of the detection of muons suitable for use in a new detector (GEM) to be used at the Superconducting Super Collider (SSC).